Implementation of a Technique to Amplify Complex Signals Through Non-linear Amplifiers

The proposed research will entail the development of a ASIC for amplifying complex signals at very high clock rates. The efficacy of this approach (which depends on a prior development by Mixtec) at very high clock rates will be demonstrated by a prototype circuit and computer simulation.